Cyclic Routing

The aim of this research is to develop methodologies and algorithms to address problems of cyclic routing. That is, for routing problems where customers must be visited at regular intervals called cycles. Research to date related to vehicle routing has assumed that the customer will only be visited once in the time period under consideration; using this assumption the problems are to assign each customer to a route, sequence the route, and schedule the visit to each customer consistent with the route. For a large class of practical vehicle routing problems, however the one time period assumption is not adequate because customers must be visited cyclically.